Phytoplankton Processes in the Arctic Ocean

This proposal is part of an integrated scientific investigation to study the properties of the Arctic ocean, atmosphere, and sea-ice on a transect between Murmansk, USSR and Nome, Alaska. There are few published measurements of biomass or production from most shelf and basin regions of the Arctic Ocean. This project is one of four that will evaluate biological processes in the Arctic Ocean during the cruise. This research will measure the distribution, abundance and rates of carbon incorporation by phytoplankton in geographically diverse regions of the Arctic Ocean. It will examine the factors regulating rates of production and the partitioning between exportable and total production large spatial scales.